Travel Expenses for Symposium on "Application of Multiple Scattering Theory to Materials Science"

This award is to cover partial support for travel of participants to the symposium on "Application of Multiple Scattering Theory to Materials Science" at the Materials Research Society Fall Meeting in Boston.